Physiology Enhancement Project for Undergraduate Biology Students

9352505 Famiano It is expected that laboratory instruction using this equipment will not only reinforce basic concepts and principles necessary for an understanding of physiology but will also develop and improve the students' critical thinking skills. It is further expected that such laboratory experience will produce more competitive transfer students as well as students who are better prepared for today's workforce. ***